A Study of Game-Like Models of Computation and Their Applications in Computer Science

This investigation is a study game-like models of computation and their applications in Computer Science. A theory of two-person computational games has already ben developed and has applications in optimization, cryptography, number theory and many other areas. This effort will continue research on two-person games, by generalizing known results and extending the standard models to include new classes of game-like problems. This project will also result in a characterization of the complexity of some multi-person games that model problems in distributed computation and cryptography. To complement this research the uses of game theory in the design of distributed algorithms will be investigated. The benefit of this research will be a better understanding of the complexity of game-like computational problems, in particular, problems in distributed computation.